Precision Measurements of Electromagnetic Properties of Light Pseudoscalar Mesons via the Primakoff Effect

This fund will support two undergraduate students working on
Jefferson lab PrimEx project. They will work on hybrid crystal
calorimeter development, and be responsible for the photo-multiplier
tube's examination and selection by measuring the linearity and high
rate stability. They will also work on Monte Carlo simulation for
the coordinate reconstruction of HYCAL. Upon the availability of
travel funds, they may stay at Jefferson Lab for two months in the
summer to work on the detector assembling and beam test. The
participation of undergraduate students in the physics frontier
research will provide them with interesting challenges while
developing skills in many areas. Funds from this proposal will
therefore enrich a solid undergraduate physics program.